Measure and Topological Rigidity beyond Homogeneous Dynamics

From the motion of the planets to the turbulence of the weather, most systems that appear in science and technology change over time according to fixed rules. A central aim of research in dynamical systems is to predict the long-term behavior of such systems, yet even simple rules can generate behavior so intricate that long-range prediction seems hopeless. In rare and remarkable cases, however, a phenomenon known as rigidity holds: the possible long-term outcomes are so tightly constrained that they can be described completely, revealing a hidden order underlying the apparent complexity. This project studies rigidity across a far broader range of systems than currently understood, with the goal of determining exactly where every path can lead and how these paths distribute themselves over time and space. The investigator will strengthen the mathematical foundations of the theory of dynamical systems and develop new connections among dynamics, geometry, and topology, producing tools that may ultimately illuminate the behavior of complex, evolving systems throughout science and engineering. By deepening our understanding of these systems, the project advances basic knowledge that broadens the reach of mathematics across the sciences. It will also help train the next generation of researchers — graduate students, postdoctoral scholars, and advanced undergraduates — and broaden participation in the field through expository surveys and lecture notes and through the organization of seminars, schools, workshops, and conferences.

The investigator will develop a general framework for measure and topological rigidity that reaches beyond the classical, homogeneous setting in which such results are currently understood. The starting point is the study of random walks and related flows on manifolds that exhibit some hyperbolic behavior, where the central objects are the stationary and invariant measures that govern long-term statistics, together with the closures of individual orbits. Building on recent advances by the investigator and collaborators, the project aims to establish conditions under which invariant families of tangent directions assemble into smooth foliations and to prove that the measures generated by individual trajectories converge and equidistribute. Underpinning these goals is the development of practical criteria for uniform expansion, a key mechanism that drives rigidity. The investigator will apply this machinery in concrete geometric settings, including symplectic manifolds, geodesic flows on negatively curved manifolds, and character varieties of surface groups. In the last of these, the project will analyze the action of mapping class groups and their algebro-geometric subgroups, seeking a complete classification of the invariant measures and orbit closures. By uniting broadly applicable rigidity methods with richly structured examples, the project will develop analogues of Ratner's celebrated rigidity theorems in settings that lack any underlying homogeneous structure, opening new avenues at the crossroads of dynamics, algebraic geometry, Hodge theory, and low-dimensional topology.